CISE Research Instrumentation: Parallel Computing For Wireless Networking Research

9729863 Goodman, David J. WINLAB (Wireless Information Network Laboratory),Rutgers University CISE Research Instrumentation: Parallel Computing For Wireless Networking Research This research instrumentation grant enables the following research projects: - Scalable Simulations of Telecommunication Systems- Interference and Coexistence of U-NII Band Wireless Systems - Routing and Power Control in Multihop Packet Radio Networks - Interference Cancellation. WINLAB, an NSF/Industry Cooperative Research Center, will purchase a high performance 14-processor SMP computer (SUN UltraSparc HPC 4000) to support computation-intensive research projects in wireless data networking which exhibit considerable degree of untapped parallelism. The new and ongoing projects that critically depend on such a computing platform include:- Development of a Virtual Wireless Testbed for parallel simulations of radio propagation, mobility, network traffic and protocols. The Testbed evolves to become a standard research and education tool.- Investigations of interference and robust protocols for the wireless systems in the recently allocated 5 GHz bands for the Unlicensed National Information Infrastructure (U-NII).- Investigations of power control and feasible routing schemes in multihop radio networks.- Design of a testbed implementing sophisticated multiuser detectors for new CDMA systems. The purchase of the multiprocessor SUN UltraSparc will greatly accelerate research in these areas, as well as in other projects involving DIMACS (an NSF S&T Center) and ECE and CS Departments at Rutgers, which currently do not have a comparable high performance multiprocessor with parallel thread support.